Experimental Investigation on Vibration Screening Effectiveness of In-filled Trench Barriers

***
9114114
Ahmad
Ground vibrations generated by machine foundations or traffic can have an
adverse effect on nearby buildings, equipment, and people, ranging from
annoyance or discomfort to structural damage to the facilities. Therefore,
for prevention of damage to adjacent structures and equipment nearby, in
many cases it is necessary to significantly reduce the transmission of such
vibrations. For high frequency vibrations, this objective can be achieved by
placing a wave barrier between the source of vibration and the area to be
protected. In-filled concrete and soil-bentonite trenches have been used in
practice for many years as wave barriers.

The primary objective of the completed research was to conduct an
experimental investigation on the influence of various geometrical and
material parameters on vibration screening effectiveness of in-filled trench
barriers and then utilize the experimental data to verify and calibrate the
analytical findings. To achieve this objective prototyped model tests were
conducted in field in a remote area near the north campus of SUNY at
Buffalo. Both near field (active) and far field (passive) vibration
screening by concrete and soil-bentonite in-filled trenches were studied. An
electromagnetic vibratory oscillator was used as a vibration source to set
out continuous wave trains at selected frequencies. Measurements of ground
vibration at selected pickup points were made 'with' and 'without' the
in-filled barrier in place. The effectiveness of the barriers was computed
as the ratio of the ground motion 'with' and 'without' the barrier. These
results were then compared with analytical solutions. Detail of this
investigation has been presented in technical conferences, and will be
published in ASCE's Journal of Geotechnical Engineering.As a result of this
research, the present level of knowledge among engineers and scientists on
vibration screening by in-filled trenches will advance considerably.
***